Estimation, Modeling and Prediction of Nonseparable and Nonstationary Space-Time Processes

M. FUENTES: DMS - 0353029

ABSTRACT

Classical geostatistics and Fourier spectral methods are powerful
tools to study the spatial temporal structure of stationary and
separable processes. However, it is widely recognized that in real
applications spatial temporal processes are rarely stationary and
separable. Thus an important extension of these spectral methods is to
processes that are nonstationary and nonseparable. In this work, the
investigator presents some new spectral approaches and tools to
estimate, model, and test for nonstationarity and nonseparability.
The investigator introduces nonparametric approaches and fitting
algorithms to estimate the spatial temporal structure of a
nonstationary and nonseparable spatial process defined on a continuous
space, and studies the asymptotic properties of these estimates. The
methods are based on a spectral approach, using spectral functions
that are space-time dependent. The most important scientific
contributions of the research proposed here are: the parametric and
nonparametric estimation of the complex spatial temporal dependence of
environmental processes in general situations (nonstationarity,
anisotropy, nonseparability); the introduction of flexible models for
spatial prediction of environmental processes using spectral methods;
and new methodology for spatial prediction and estimation in the
presence of massive data.

Spatial processes are an important modeling tool for many
environmental and scientific problems. Environmental scientists who
work with spatial temporal data, however, do not typically believe
that real data satisfy the simple model assumptions such as
separability and stationarity that are currently used in practice.
Therefore, it is is imperative for statisticians to develop methods
without using those assumptions, especially for use with massive
spatial-temporal (environmental) data sets. Through collaborations
with scientists, the new statistical models and methods proposed by
the investigator for estimation and prediction of space-time
processes, will enhance science by improving weather and air quality
mapping. The investigator will develop applications in collaboration
with atmospheric scientists and oceanographers on data assimilation
problems and on assessment of the performance of weather, ocean, and
air quality numerical models. The methods proposed here for space
time processes are also applicable to other fields. Past interactions
of the PI with various scientists at the Environmental Protection
Agency (EPA), the National Oceanic and Atmospheric Administration
(NOAA), and the National Center for Atmospheric Research (NCAR) are
evidence that previous work of the PI has had an impact on various
fields. At NCSU there is a
high proportion of women, American and African-American students
compared to other Statistics departments. Five out of the seven PhD
students currently working on their dissertations under the PI's
supervision are women. The PI will continue her efforts to broaden the
participation of minorities and women.